Mathematical Sciences Computing Research Environments

The Department of Mathematics at the University of Southern California will purchase multiprocessing computation servers which will be dedicated to support research in the mathematical sciences. The equipment will be used for several research projects, including in particular: simulating biological neural networks, computing homological invariants of moduli space, interacting particle systems as models of catalytic surface reactions, nonparametric estimation of probability distributions from incomplete data.